SGER: Graded Optical Index Materials

9978584
Bhalla

Functionally graded materials (FGM) with 'continuous' changes occurring in their microstructure are useful for several electrical and mechanical applications. In order to expand the usefulness of FGM in optical arena the materials should have graded structure-property relationship on the micro to nanoscale range. In this SGER proposal the PI has suggested to use the nanoscale-ordering behavior of the mixed oxide materials and thus tailoring and grading the optoelectronic properties of this special class of materials. Under special heating cycle the degree of orderedness in the material can be varied which consequently will also influence the optoelectronic properties of materials. Several relaxor and order-disorder type materials will be tested for achieving the goals of the proposed research.

The idea is novel and has not been tested before to produce the highly useful and needed optical graded refractive index ceramics or single crystal materials.

The scope of the proposed work does fall in the new and high-risk category of research. If it is successful several new applications of such materials are envisaged in the optoelectronic area.
***